A Continued Study of High-Frequency Larmor Waves

This work is a continued investigation of Larmor-Wave propagation through pure metal plates at millimeter wave freqencies. The study will include alkali metals and noble metals. A new high vacuum facility allows for the first time the fabrication, by sputtering and evaporation, of alkali-metal samples. The Larmor-wave studies can proceed immediately as the conduction electrons are strongly coupled to ferromagnetic surface layers. In addition, the application of ferromagnetic surface layers may well allow the observation and study of new modes of excitation of the conduction electrons which have been predicted theoretically but not observed as yet.